Mathematical Sciences: 1995 AMS-SIAM Seminar in Applied Mathematics "Mathematics of Numerical Analysis."

9417022 Rankin The American Mathematical Society requests a grant in the amount of $110,688 for the twenty--fifth AMS-SIAM Summer Seminar in Applied Mathematics, to be held in the summer of 1995. Previous seminars were held annually or at two or three year intervals since 1957 for a total of 24 seminars. The 1995 topic, "Mathematics of Numerical Analysis", was selected by the 1993 AMS-SIAM Committee on Applied Mathematics. Members of the Organizing Committee for the 1995 Sumer Seminar are: Stephen Smale (chair), Gene Allgower, Lenore Blum, Alexandre Chorin, Phillippe Ciaret, Felipe Cucker, James Demmel, Ron DeVore, Gene Golub, Arieh Iserles, Bert Jongen, Herb Keller, J.L. Lions, Jim Renegar, Michael Shub, Gilbert Strang, Shmuel Winograd and Henryk Wozniakowski. The 1995 Summer Seminar will be held during a four-week period in July/August, 1995, at Park City, Utah. The Society will be responsible for making suitable arrangements for lecture and seminar rooms, and for handling administrative matters.